Tracing the Star Formation History of the Universe

Proposal ID: AST 0137927
PI: Gronwall, Caryl

Dr. Gronwall is awarded funds at Pennsylvania State University to carry out a multi-wavelength study of the star formation history of the universe. She will use optical, infrared, and ultraviolet observations of large samples of emission-line galaxies to measure the density of the star formation rate at different look-back times. Dr. Gronwall will use data obtained from many sources, including the Hobby-Eberly Telescope, the Advanced Camera for Suveys on the Hubble Space Telescope, and the Space Infrared Telescope Facility. The observational results will be incorporated into Dr. Gronwall's models of the evolution of galaxies over time.